Approximation of NP-Hard Problems: Algorithms and Complexity

Approximation of NP-hard problems: Algorithms and Complexity
Sanjeev Arora
Princeton University

The broad goal of the project is a study of the approximation properties of
NP-hard problems. NP-hard problems are those that do not have any efficient
algorithms if the classes P and NP are different, as is widely-believed. They arise in a variety
of application areas in science and technology, including scheduling, VLSI
design, artificial intelligence, design of optimum networks, etc.
Since we do not expect to solve these problems optimally, there is a need to
design efficient approximation algorithms for them: algorithms that compute a
solution whose cost is within a small factor of the optimum. The PI has been
involved in designing approximation algorithms during the past decade. He has
also been part of an ongoing research program that shows that for many of these problems,
computing approximate solutions is no easier than computing optimum
solutions. (In other words, approximation is also NP-hard.) These
inapproximability results shed important light on the problems as well.

The project takes a two-pronged approach, combining a search for good
approximation algorithms with a search ---using the theory of probabilistically
checkable proofs (PCPs)--- for inapproximability results. The project focusses
on a collection of important algorithmic problems, including: learning mixtures
of distributions (a problem important in AI and data mining/analysis),
learning bayes nets and markov random fields (useful in speech recognition,
machine vision, medical diagnoses systems etc.), lattice problems (useful in
cryptography and cryptanalysis), and graph coloring (a central problem in complexity theory).
Progress, especially algorithmic progress, on any of these problems has
important consequences.